Temporally Uniform Grid Convergence of Discrete Approximations and Numerical Simulations in the Problems of Wave Propagation over Unbounded Domains

Two major well-recognized difficulties in numerical simulation of waves
propagating over unbounded domains are the accumulation of error during
long time intervals and necessity to truncate the domain and subsequently
set the artificial boundary conditions (ABCs) at the external artificial
boundary. These two issues turn out to be closely related. In the previous
work of the PI with collaborators that has been done in the framework of
the scalar wave equation, we have used the inherently three-dimensional
phenomenon of lacunae and developed a methodology that modifies any
appropriate discrete scheme so that the long-term error buildup is fully
eliminated while all of the original properties of the scheme (e.g., order
of accuracy) are preserved. Moreover, the procedure allows one to replace
the original infinite domain by a finite computational domain, which leads
to obtaining highly accurate non-local unsteady ABCs. These ABCs are built
directly for the discrete formulation of the problem, their temporal non-
locality is fixed and limited, and they possess full geometric universality.
The key objective of the proposed project is to extend the aforementioned
methodology to wave-type models of practical interest, in particular, the
Maxwell's equations (electromagnetic waves) and the linearized Euler's and
full-potential equations (acoustic waves). The attainability of this goal
is accounted for by the fact that the solutions to these equations have
sharp aft fronts of the waves (manifestation of lacunae), which is the
exact same behavior as displayed by the solutions to the wave equation.

Numerical simulation of waves on unbounded domains has numerous applications
that range from scattering of electromagnetic waves from aircraft and ground
vehicles (radar technology) to antenna design to calculation of the acoustic
fields produced by the airframe and airplane's jet engines for the purpose of
reducing the noise levels around airports, as well as inside the passenger
compartments. The results that we expect to obtain are going to benefit the
foregoing applied areas. Indeed, we anticipate the creation of a universal
framework that would allow one to modify a wide class of already existing and
proven methods so that to enable two additional crucial capabilities -- long-
term integration and accurate computation of infinite-domain wave fields on
truncated domains. Besides, as the proposed research unfolds, it will
necessarily include communication and collaboration with physicists and
engineers, as well as preparation of course materials and training young
researchers.